Characterization of the Cretaceous Normal Superchron

Numerical simulations have suggested that a stable (non-reversing)
geodynamo may be more efficient at generating stronger dipole fields,
and that this condition can arise from a favorable pattern of
laterally varying heat flux across the core-mantle boundary. Thus it
is important both for understanding how the geodynamo works and for
inferring past lower-mantle conditions to find out whether or not the
average field strength really was unusually high during the
Cretaceous Normal Superchron (CNS), the span of time from around 121
to 83 Ma during which the geodynamo stopped reversing. The
investigators propose a major effort to characterize the
paleomagnetic field intensity and directional dispersion during CNS.
They plan field work to collect lava samples in Madagascar, Korea,
Costa Rica, N. Greenland, and Svalbard erupted during, just before,
and just after the CNS. They will also collect basalt of mid-Miocene
age (a time of high reversal rate) from the Columbia River Plateau.
This research seeks answers to the following important questions that
are still unresolved: (i) whether the average intensity during the
CNS was unusually high, low or unexceptional, (ii) whether there were
long-term intensity trends within the CNS, and (iii) whether the
fluctuation of intensity on time scales of order 104 yr resembled
that of the recent field or was distinctly different. An alternative
conjecture for the occurrence of the CNS is that the geomagnetic
field can switch abruptly into and out of a non-reversing state,
simply by virtue of the highly nonlinear geodynamo processes
operating in the core. The investigators will test this hypothesis by
seeing whether there is an identifiable temporal trend in
paleointensity or dispersion leading up to the beginning or end of
the CNS. This international collaborative project includes bringing
senior scientists, postdocs and students to work together and share
their knowledge and ideas. The scientific results will be made
available in the comprehensive paleomagnetic database currently under
development with NSF support and will be disseminated in journal
articles. The character of the geomagnetic field during the
Cretaceous Normal Superchron also has societal relevance and
interests a broad scientific community trying to understand mantle
behavior and determine potential causal relationships between plumes,
large igneous provinces formation and climatic changes.